Medical Ultrasound Doppler System with Coherent Swept Frequency Excitation

This is a proposal to develop a new system for measuring blood flow using Doppler ultrasound. Repeated pulses, consisting of synchronous swept-frequency sinusoids, are used for excitation. After appropriate processing of the reflected signal (which may include correlation with the excitation waveform), both depth and velocity information can be recovered. The proposed system includes software cancellation of stationary tissue structures, allowing a substantial increase in the signal-to-noise ratio for weak flow signals. If successful, the work will open up new research and diagnostic avenues by facilitating the determination of flow in small arteries and peripheral vasculature.